Modernization of Optics Experiments in Advanced Undergraduate Labs

St. Mary's College will purchase an optical bench, a 5 mW He-Ne laser and associated optics, a photodiode array, an interferometer system, a fiber optic system, and a holographic system. This equipment will be used to improve instruction in the advanced physics laboratory course by permitting the addition of several new experiments in modern optics. These experiments are designed to give students training in the use of modern optical equipment as well as improving their understanding of the basic physical phenomena. St. Mary's College will match the NSF grant with an equal amount of funds.